Japan Long-Term Visit: Distributed and Fault-Tolerant Computing

This award will support Dr. Richard D. Schlichting of the University of Arizona to conduct collaborative research for seven months with Dr. Takuya Katayama of the Tokyo Institute of Technology. They will investigate the high-level design processes that are involved in fault-tolerant distributed systems, and will attempt to begin development of a programming environment to facilitate implementation and testing of software for such systems. Problems of particular interest in distributed systems include that of the construction of distributed mixed-language programming; the development of a high-level approach to handling failure in mixed programming languages; and the validation of fault-tolerant programs. These problems, among others, will be addressed in this research. The Japanese collaborator's expertise in language translation, software design, and programming environments will strongly complement the U.S. Principal Investigator's expertise in distributed and fault- tolerant computing, and ongoing projects in distributed computing at the Tokyo Institute of Technology will synergistically contribute to the success of this work.